Advanced Technological Education Programs in Semiconductor Manufacturing

9454589 Hata The Portland Community College - Intel Corporation cooperative program in semiconductor manufacturing education is being transported to two other sites: The Southwestern Indian Polytechnic Institute and Albuquerque TVI with Intel, and Chemeketa Community College in Oregon with Siltec Silicon. This academic program is characterized by a solid foundation of science, mathematics, and communications skills, along with specialty courses offered using industry facilities. Project activities include curriculum transfer, faculty development, course implementation and updating, instructional delivery, program assessment, and dissemination of project results. A central feature of the project is an annual three-day workshop at which faculty participants collaborate on how courses should be taught, course content and level, student assessment, and specification of best practices identified at the various sites.